Nonlinear PDEs in Geometric Analysis

Abstract

Award: DMS-0072328
Principal Investigator: Wenxiong Chen

Professor Wenxiong Chen will work on a series of nonlinear
problems in differential geometry. One of his main subjects is
prescribing Gaussian and scalar curvature: given a function on a
Riemannian manifold, can it be realized as the curvature of some
pointwise conformal metric? This is equivalent to solving certain
semi-linear elliptic partial differential equations. He will
also work on uniformization theorems on singular surfaces and the
existence of harmonic maps between complete, noncompact
manifolds, which are closely related to the study of fourth order
nonlinear elliptic equations, nonlinear elliptic systems, and
nonlinear parabolic systems.

According to Einstein, the Universe we live in is a curved space,
in which gravity is realized as a distortion or bending of
space-time in the neighborhood of a massive object and this
change of shape is measured by the curvature tensor. Chen's
research is focused on understanding when a given function can
become a curvature. This is a challenging problem in Riemannian
geometry and the analysis of partial differential equations, to
which many researchers have contributed. The nonlinear partial
differential equations and systems studied in this project have
various applications in physics, chemistry, and biology, such as
in fluid dynamics, combustion theory, and river pollution